Data Base on the Stock and Employment of Scientists and Engineers in Selected Countries

This project will assist NSF in compiling, standardizing and analyzing baseline data on the stock and employment of scientists and engineers for selected countries (Italy, Canada, Sweden, Taiwan, and South Korea). Foreign census and labor force data will be used to provide estimates of scientists and engineers wherever possible by detailed fields and selected characteristics such as sex, age, educational qualifications and branch of economy and industry. The National Science Foundation has primary responsibility within the Government for collecting and providing statistics and analysis of information on scientific and technical personnel resources. NSF has established a data base of such information for four large industrialized countries--Japan, West Germany, France, and the United Kingdom (agreement number SRS-8813944). This project would expand that data base to include data on additional important industrialized and newly industrializing countries. This type of information is sought by decisionmakers in the pubic and private sectors and is needed for Congressional- ly mandated reports such as Science and Engineering Indicators.